X-Ray Crystallography Program System

X-ray crystallography of biological macromolecules is an increasingly important tool to understand structure, function, and control. Developments in genetics, data collection, and computer hardware have produced an unprecedented growth of crystallographic studies. X-ray crystallography produces large amounts of data and is entirely dependent upon the availability of powerful computers and sophisticated algorithms for the interpretation of raw data. After crystallization, data collection and phasing, a large variety of computational procedures are required in order to solve and refine the structure. These procedures include methods of phasing, density modification, chain tracing, refinement, and correction of errors in structures. Recent publication of partially erroneous structures has drawn everyone's attention to the difficulties involved at these stages of the crystallographic structure determination pathway. It is the goal of this proposal to develop a comprehensive, machine-independent, and user-friendly program system for all computational aspects of macromolecular crystallography. Previous experience with the program X-PLOR will proved a framework for the proposed software development. The specifications of the proposed software development are open to discussion at a workshop that has been organized by the principal investigator and that has been attended by 30 leading researchers in crystallography. The propose software will significantly reduce the time required to obtain structures and will increase the reliability of crystallographic structure determination.